Double Affine Hecke Algebras

Double Affine Hecke Algebras
Ivan Cherednik

The aim of the project is to study double affine Hecke
algebras (DAHA) and their representations, especially those
with applications in harmonic analysis. The focus is the
structure of the polynomial representation of DAHA, its
decomposition and special quotients for generic q, at roots
of unity and for unimodular q. The main examples are finite
dimensional quotients of the polynomial representation
generalizing the Verlinde algebras from conformal field
theory; infinite dimensional and non-semisimple quotients
are a natural next step. Deep connections to the classical
theory of affine Hecke algebras, the theory of Kac-Moody
algebras, and modern mathematical physics are expected.

Lie groups and Lie algebras formalize the concept of symmetry
in the theory of special functions, physics, geometry, and
combinatorics. In a similar way, DAHA are candidates for a
formalization of the notion of the Fourier transform. In the
simplest one-dimensional case, they are directly related to
the celebrated sl(2). There are indications that they serve
the multidimensional theory of Fourier transform better than
Lie and Kac-Moody algebras. DAHA are also a source of new unitary
infinite dimensional theories, that, presumably, will find
fundamental applications in mathematics and physics, the
theory of special functions and combinatorics. There are other
important directions of the DAHA theory, mainly of algebraic
nature, but unitary representaions and Fourier analysis remain
of high priority.